Mathematical Sciences: 1989 Summer Institute on "Several Complex Variables and Geometry"

This project supports a three week mathematical research institute organized by the American Mathematical Society to be held in the Summer of 1989 at the University of California, Santa Cruz. This institute will be the thirty-seventh in a series planned with the purpose of bringing together a group of mathematicians who are interested in a particular field of mathematical research. Emphasis is placed primarily on instruction at a very high level, with seminars and lectures by distinguished mathematicians in related fields. "Several Complex Variables and Complex Geometry" is the topic of the 1989 institute. Complex analysis has grown considerably since 1975, the date of the last institute which focused on this topic. A significant component of this growth has stemmed from the interaction with other parts of mathematics. One principal purpose of this institute is to foster further such interaction. Proceedings of the institute will be published in the American Mathematical Society's series "Proceedings of Symposia in Pure Mathematics".